Acquisition of an Isotope Ratio Mass Spectrometer for Water and Organic Applications

0216643
Charles
This Major Research Instrumentation award to University of California at San Diego provides funds for acquisition of an isotope ratio mass spectrometer for shared use in studies of climate and global climate change, ocean sciences and anthropology at the Scripps Institution of Oceanography and other UCSD departments. The award is supported by the Division of Ocean Sciences at NSF. UCSD will provide cost-share support from non-federal funds for 33% of total project costs.
***